Experimental and Parametric Studies of Seismic Actions in Superstructures of Box Girder Bridges

Highway bridges throughout the country are constructed to follow the alignment of the highway roadway; consequently, some bridges are built with a horizontal curvature. The analysis and design of these bridges is, therefore, a new design activity for bridge engineers and, in addition, very little experimental data are available to substantiate the design with respect to the dynamic response of these bridges during an earthquake. The research effort will be performed in conjunction with a current project which is obtaining field data on the dynamic response of a curved box bridge in New Zealand. Researchers will investigate and obtain actual data on the distortional and warping modal properties of the bridge and will supplement the data obtained for the soil-structure interaction and the coupling of the flexural and torsional dynamic properties of the superstructure. The data to be obtained will be very useful in the development of analysis methods and computer programs, and will also serve as a basis for design provisions for highway bridges.